Michigan Louis Stokes Alliance for Minority Participation

The University of Michigan, Western Michigan University, Michigan State
University and Wayne State University propose to establish the Michigan-Louis Stokes
Alliances for Minority Participation (MI-LSAMP) in order to significantly increase the
quantity and improve the quality of students earning science, technology, engineering and
mathematics (STEM) baccalaureate degrees from our institutions, and increase the
number of under-represented minority (URM) students interested in, academically
qualified for and matriculated into graduate study programs. The MI-LSAMP partners are
recognized as isflagshipld institutions in the State of Michigan and represent the diversity
of public Doctoral Research Extensive institutions in the nation. While the UM, MSU,
WSU and WMU have demonstrated a deep commitment to increasing the diversity and
excellence of their student bodies and have had long-standing collaborations with one
another, they realize that the greatest gains will be achieved by formally allying. The
mission of the MI-LSAMP not only supports the National Science Foundations strategic
goal to help create ira diverse, competitive and globally-engaged U.S. workforce of
scientists, engineers, technologists, and well-prepared citizens,lr it supports goals set forth
by the Michigans Cherry Commission on Higher Education and Economic Growth.ln
The overall goals for the MI-LSAMP are to:
1. Significantly increase the number of URM students earning baccalaureate degrees
from MI-LSAMP partners. An aggressive but balanced plan has been devised to
increase the number of URM students earning baccalaureate degrees in STEM fields
by 50% in 5 years, and 100% in 10 years. Programmatic activities focus on
increasing the recruitment of new and transfer URM students, and increasing their
graduation rates as a consequence of participation in Science, Engineering and Math
Pre-First Year programs, research projects sponsored by the Michigan Undergraduate
Research Consortium, internships and co-ops, and residential learning programs.
2. Institutionalize MI-LSAMP strategies and practices. Programmatic activities will be
evaluated and the most effective and efficient of these will be institutionalized in an
effort to sustain, beyond the NSF funding period, growth in the number of URM
students earning STEM degrees. In addition, MI-LSAMP offices, drop-in centers and
learning centers will become permanent fixtures on each of the alliance campuses.
3. Contribute to a significant increase in the number of under-represented minority
students earning baccalaureate degrees in the State of Michigan and nationally.
Successful completion of project will result in nearly a 50% increase in the number of
URM students earning baccalaureate degrees in STEM fields within the State of
Michigan. iiBest practicesla of the MI-LSAMP will be attractive for adoption and
could significantly improve national efforts to increase production in the STEM
fields.
4. Increase the number of students pursuing advanced degrees in STEM fields. The MI-
LSAMP will collaborate with the Michigan AGEP Alliance (MAA), a recently
established partnership of the same institutions, to ensure that students earning
baccalaureate degrees are prepared for, and aware of opportunities to pursue
advanced studies in STEM fields.
The intellectual merit and broader impact of this project goes beyond increasing the
number of URM students graduating in STEM fields and dissemination of effective and
efficient MI-LSAMP programs. The MI-LSAMP will expand outreach to the pre-college
community, increase the persistence of STEM majors, increase faculty involvement in
mentoring URM students, promote collaboration among faculty at Michigan institutions
of higher education, and increase the diversity of our communities and workforce.